Renovation, Construction, and Instrumentation for an Interdisciplinary Research Facility for Computational and Applied Mathematics

9413397 ODEN This award will permit the University of Texas at Austin to build a distributed company facility featuring a bank of high - performance workstations, services and terminals connected by a very fast fiber optic. This facility will be for the Texas Institute for Computational and Applied Mathematics (TICAM) and will be an essential part of the environment for a new interdisciplinary graduate degree and research program.